SBIR Phase I: Heterogeneous Catalyst for Chlorinated Hydrocarbon Remediation

*** 9661501 Knudson This Small Business Innovation Research Phase I project will determine if a heterogeneous catalyst that will rapidly destroy chlorinated hydrocarbons can be produced from two waste materials. This effort will determine if an active catalyst can be provided by adding ionic iron by ion exchange into a low-cost feedstock followed by thermal treatment under a reducing gas. This process should produce a highly dispersed iron-carbon supported heterogeneous catalyst. The proposed technology is designed to produce a low-cost, kinetically rapid, high-capacity heterogeneous catalyst for the remediation of chlorinated hydrocarbons. These properties mean that it can be used economically in barrier applications to remediate groundwater. ***